Mathematical Sciences: Highly Transitive and Homogeneous Extensions of Infinite Permutation Groups

This project involves the use of recursion-theoretic and model-theoretic constructions as well as combinatorial group theory to obtain permutation representations of countable degree. The principal investigator will extend countable sharp subgroups of the countable symmetric group. Highly transitive and relatively homogeneous representations of countable existentially closed groups will also be studied. The research is in the general area of infinite group theory with a focus on infinite permutation groups. These groups will be studied by means of certain constructions from logic. This interaction between algebra and logic is an area which is growing in importance. It has provided new insight into some long standing problems.